EPWG: SAME: Science and Math Equity

9450077 Matute-Bianchi This project, Science and Mathematics Equity (SAME), involves activities to develop a culture that promotes high achievement in mathematics and science for girls, particularly Latinos. All activities are conducted in English and in Spanish. The participants will be involved in a series of collaborative problem solving activities focused on integrated mathematics and science. Gender Equity Consortiums (GEC) will form the focus for gender equity development and dissemination activities with four main components: (1) a 3 week Lego/Logo summer institute which will involve girls and their teachers in collaborative problem solving in a new domain. (2) girls will return to their schools to become peer mentors to other students and to receive mentoring from university undergraduates (3) teachers will participate in a staff development program focused on gender equity, and (4) family members will participate in a workshop designed to help them support the young women in mathematics and science achievement. A Mathematics/Science/Technology Equity Team (MSTEAT) will integrate gender equity activities into the county and university subject matter projects in mathematics and science. Finally, the project will disseminate the model through an interactive video disk and public access TV program. ***